U.S.-Australia Workshop on Critical Issues in High Performance Wear Resistant Films/Sydney, Australia/February 1995

9417020 Perry This award will support the participation of twelve U. S. investigators to take part in a workshop in the area of high performance, wear resistant films. The meeting will be held in Sydney, Australia in February 1995. The American coordinator is Dr. Anthony J. Perry, Director for Research and Technology at ISM Technologies, Inc. located in San Diego, California. The Australian organizer is Dr. Philip J. Martin, Research Scientist with the Surface Engineering Group at the CSIRO National Measurement Laboratory in Sydney. The workshop is being conducted under the U.S.-Australia Cooperative Science Program and support in Australia is provided through the Department of Industry, Science and Technology (DIST). Hard films made by Physical Vapor Deposition (PVD) improve both wear and corrosion resistance of surfaces. The critical issues are the preparation and treatment of the film-substrate interface for maximum adhesion, the formation of dense, mechanically robust films, and the measurement and control of film properties. The workshop will bring together leading researchers in the significant areas of broad based PVD studies. The U.S. participants to the workshop will bring expertise in the measurement and control of film mechanical properties; the Australian side has considerable expertise in PVD technology in sputtering and cathodic arc evaporation. It is anticipated that workshop manuscripts will be published in connection with the scientific journal Surface Coatings and Technology.